Workshop on the Mathematical Aspects of Data Networks Performance

This proposal is for a Workshop that will bring together well-known investigators in the theory of computer networks and world-class applied mathematicians in the area of queues and more general stochastic processes, with the intent of generating new classes of simple, tractable mathematical models for computer networks. It is generally felt that currently accepted models and methodologies have reached the point of sharply diminishing returns just when practical networks have begun to severely outgrow theoretical understanding.